High Energy Physics Research

This action will provide support for three faculty members, research associates and students to continue research in elementary particle physics. A new activity will be started at the Cornell Electron Storage Ring to study reactions initiated through the interaction of two photons with each other. This is a continuation of the line of research the group has been performing at the Stanford Linear Accelerator Center. Research and development of energy measurement calorimeters for possible application in a particle detector at the Superconducting Supercollider, is underway. The group will also develop a detector to search for non luminous matter remaining from an early epoch of the universe the so called weakly interacting massive particles.